CSEDI: Dynamics and Melting of a Heterogeneous Mantle: Importance to the Geochemical Variability of Hotspot and Mid-Ocean Ridge Magmas

The proposed study will address two problems in solid Earth dynamics:
(I) How to reconcile the geochemical distinctions between mid-ocean
ridge basalts (MORBs) and hotspot ocean island basalts (OIBs) which
are widely interpreted in terms of a chemically layered mantle, with
geophysical evidence for whole mantle (i.e., single layer)
convection. (II) Determining the origin of the geographic variations
in lava geochemistry observed at hotspots. The hypothesis is that
variations in melting and ductile flow of a compositionally
heterogeneous mantle cause many of the key geochemical
characteristics of OIBs and MORBs. This hypothesis will be tested
using numerical models that simulate the three-dimensional viscous
flow, heat transport, and melting in the upper mantle. Models will be
constructed based on the assumption that hotspots are formed by
buoyant upwellings, or mantle plumes, interacting with the base of
the lithosphere. The melting calculations will incorporate laboratory
experimental data on the pressure-temperature conditions for melting
of materials with different compositions. Computational results will
quantify the relationships between specific physical conditions and
predicted geographic variability of trace-element and Sr, Nd, Pb, and
He isotope geochemistry in erupted magmas at three tectonic scenarios
where adequate data sets exist for comparisons: an intraplate
hotspot (Hawaii), a hotspot centered on a mid-ocean ridge (Iceland),
and a hotspot off of, but near a mid-ocean ridge (Galapagos).
Problem (I) will be addressed by determining whether models do or do
not require mantle plumes--which could come from the lower mantle--to
be compositionally distinct from the upper mantle. Problem (II) will
be addressed by determining the physical conditions needed to explain
the nature of spatial geochemical variability observed at the above
types of hotspots. The origin of hotspot islands and the question of
whole- versus two-layer mantle convection are of broad scientific
interest, as evidenced by their treatment in high school and college
textbooks. The investigators have given, and will continue giving,
lectures and extracurricular seminars on these topics to local high
school and undergraduate students. Most of the requested budget will
support a Ph. D. student, providing funds needed for a comprehensive,
cross-disciplinary dissertation.